Molecular Layer Deposition of Hybrid Organic-Inorganic Polymer Films with Tunable Mechanical Properties

In this project funded by the Macromolecular, Supramolecular and Nanochemistry Program of the Chemistry Division, Steven George of the University of Colorado at Boulder will develop new surface chemistries for depositing hybrid organic-inorganic films using molecular layer deposition (MLD) techniques. The goal is to fabricate functional films with tunable mechanical, electrical, chemical, dielectric, optical and thermal properties to enable the construction of thin film devices. Targeted properties include: high cross-linking between polymer chains in the film for high toughness and high critical strain and compressibility for flexibility and volume expansion tolerance. The broader impacts involve student training and development, collaborations with companies interested in using hybrid organic-inorganic MLD films in future products, and communicating the excitement of science to elementary school students via the University of Colorado Wizard Program.

This work will develop new way to make technologically important thin films with customizable mechanical properties. These films could impact technologies that use protective and barrier layers, flexible and conductive films, and compliant and functional coatings.